Mathematical Sciences Computing Research Environments

The Department of Mathematics at the University of Toledo will purchase graphics computer workstation equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects. i) Differential geometry and soliton theory: liquid bridges; moduli spaces of integrable surfaces (such as minimal surfaces, Willmore surfaces), magnetic monopoles, and instantons; spectral curves and their Jacobians; Kac-Moody algebras and the Yang-Baxter equations. ii) Mathematical Physics: quantization methods; domain characterization; quasicrystals with defects; nonlinear control problems; eigenvalue problems. iii) Dynamical systems: chaotic layers in perturbed systems; the three-body problem with collisions; integrability of two-dimensional connections.